RIMI: Ultrafast Dynamical Processes in Chemical Systems

9550705 Lopez-Garriga The Chemistry Department of the University of Puerto Rico at Mayaguez, presents a research proposal to (1) create a cluster of research scientists, (2) establish a research facility dedicated to study fast kinetic and dynamic processes in chemical systems, (3) assist in the education of the students in the department, and (4) strengthen the existing research capabilities. The cluster, ULTRAFAST DYNAMIC PROCESSES IN CHEMICAL SYSTEMS, will focus its scientific activities on (1) subpicosecond studies of ligands in heme proteins, (2) resonance Raman spectroscopy with UV picosecond excitation, (3) ultrafast photolysis studies of ligand displacement reactions, (4) formation of agostic bonds and cyclometalation in organometallic complexes, and (5) dynamic studies of surface photochemical reactions. The major goal of the cluster is to make significant contributions to the scientific community in the research areas of interest indicated above and to assist in the scientific and intellectual development of students in our University. Our University is committed to develop the department as a center of excellence in chemistry and provide the adequate education and research training for undergraduate and graduate chemistry department in the last five years. The construction of the new chemistry building, with over 100,000 sq. ft. of laboratory space, is approaching completion and is expected to open in the 1995-1996 academic year. The new building will serve as the main site for the research operations of the cluster. This support reflects the major role and commitment from the University to: (1) science education and training of hispanic and black graduate and undergraduate students in modern spectroscopic techniques, (2) the involvement of high school students in basic research, and, (3) improving the research competitiveness of Puerto Rico in the sciences. To develop the intellectual capabilities of our undergraduate and graduate students and members of the proposed research cluster, nationally recognized speakers will be invited to present and discuss their research findings related to dynamical processes in chemical systems. The cluster proposes an external advisory board, whose members will be chosen from the speakers of the conference. They will meet with the investigators to review the progress accomplished and will provide written recommendations, to be included in the RIMI reports for future development as overall performance. With the approval of the herein proposed research program, the Chemistry Department will add a major thrust to its research programs nurtured initially by a previous RIMI Program, MRCE, and EPSCOR. Therefore, the University will be able to increase further the quality and training excellence of our undergraduate and graduate students in modern spectroscopic techniques. Thus, our students will find a better niche for advanced degrees and additional training in prestigious universities and our sprawling pharmaceutical industry will be better served. In a similar way, researchers will be more professionally assisted resulting in a concomitant increase in productivity. ***